Columnar Cacti; A Critical Resource For Avian Consumers? Quantifying Avian Community Responses and Nutrient Fluxes in Natural and Experimental Settings

Large columnar cacti, such as the saguaro (Carnegiea gigantea), are prominent features of
many ecosystems. Because of their extensive distribution and abundant production of large
succulent fruit they play an important role in structuring food webs and ecosystems. Up until
now, however, researchers studying the ecological and evolutionary aspects of plant-frugivore
mutualisms have largely ignored this important group of plants. These succulent fruit may be
particularly important in hot deserts where high air temperatures and water scarcity may
constrain animal behavior as well as the timing and investment in reproduction. The saguaro's
fruit are available during the driest and hottest period (June-July) of the summer in the Sonoran
Desert, before the onset of monsoon rains.
In this research, I use a two-faceted approach to assessing the importance of a unique
resource, the saguaro, to a community of avian consumers. The proposed research has several
features that set it apart from earlier studies examining plant -animal interactions: 1) it combines
observational data of resource use by individual consumers with direct measurements nutrient
transfer between the plant resource and a community of consumers using stable isotopes as
tracers; 2) it quantifies both temporal changes in fruit availability and changes in avian
abundance, diversity, and productivity and 3) it directly manipulates resource availability,
through fruit removal, while quantifying changes in consumer abundance, diversity, and
productivity. Taken in concert, these studies provide a unique approach to assessing the
importance of presumed irkeystonely or irfoundationlr resources by: 1) directly quantifying the
flux of nutrients between a primary producer and individual consumers and 2) through a fruit
removal experiment, examining the effects of the fruit resource on consumer abundance,
biodiversity, and productivity.
I expect this research to produce an extensive array of new insights into: 1) the water and
energy balance of desert birds; 2) the role of cacti as consumer resources in arid and semi-arid
ecosystems; 3) frugivory and nutrient transfer rates between plant-consumer interactions and 4)
community dynamics as it relates to changes in resource levels. This work will also quantify how
different consumer groups (seed predators versus seed dispersers) interact with the plant to affect
the plant's reproductive potential. It will provide the first comparative analysis of traditional
methods of studying resource use to the newer techniques using stable isotopes.
At the same time, it will be among the first studies to quantify the effects of removal of a
presumed irKeystone Plant Resourcele on the abundance, diversity and reproductive output of an
entire animal community. This research will also be the first to quantify the importance of a
single resource to the nutrient and water balance of multiple species of different body sizes,
foraging modes and dietary guilds in any ecosystem. This work should also provide important
new empirical evidence on how home range size and foraging mode affect individual
exploitation of a resource system.
Finally, this research will bring all facets of the scientific process to a large number of
graduate and undergraduate students. Twenty undergraduate students and 1 graduate student will
obtain extensive research experience working on this project and it is likely that many more will
be trained through the REU program. This research is bound to have a major inpact with the
public as well, because of my association with the Arizona-Sonora Desert Museum. Research
results from this project will be the basis of a centerpiece display at the museum that explores the
scientific process and the interactions of saguaros with the other inhabitants of the Sonoran
Desert.